Computer Science Teaching Laboratory

The Evergreen State College will establish a programming laboratory and prepare teaching materials specifically designed for the teaching of computer science. The laboratory facility will consist of thirty-two personal computers/terminals connected to the College's central Data General computer, a video projection terminal for group work, and a line printer for program listings and handouts. Faculty have developed programming and problem solving workshops in computer science, mathematics, and software engineering which will make effective use of this terminal facility. In laboratory sessions analogous to those used in the physical sciences and under the direction of faculty, students will perform experiments designed to reveal the fundamental concepts of the discipline and to instill in them the methodology necessary for the successful practitioner. The laboratory will also be used for extensive student software development projects as part of Evergreen's year-long project programs in computer science. With this laboratory facility, students will learn problem solving methodology faster, and with a higher retention rate, than is now the case. Students will also gain valuable experience working in programming teams.